Purification of Complex Biological Mixtures by Displacement Chromatography: Extension to Group-Specific Affinity Supports and Development of Novel Displacer Compounds

Previous work on the simultaneous purification and concentration of biomolecules by displacement chromatography is expanded to include: separations of complex mixtures of biomolecules, development of novel displacer compounds and an investigation of affinity displacement chromatography. Adsorption data obtained from frontal microscale chromatography is used to select appropriate displacers and chromatographic conditions for the displacement experiments. Displacement experiments are carried out with analytical and preparative columns packed with a variety of stationary phase materials. New classes of displacer compounds are identified and synthesized for various chromatographic systems. This research significantly increases the arsenal of available displacer compounds and provides basic guidelines for the selection of appropriate displacers for future bioseparation problems. Group-specific affinity chromatographic materials such as immobilized reactive dyes, lectins, and metal chelate systems are investigated for their potential use in the displacement mode. The use of affinity supports in the displacement mode is expected to significantly increase the throughput and purity attained with these selective chromatographic systems. This research will significantly expand the scope of displacement chromatography and will facilitate the widespread use of the technique for the purification of biopharmaceuticals.